Planning meeting for an I/UCRC for Cardiovascular Engineering

9523517 Hwang Cardiovascular studies are important to the growing prosthetic heart implant and valve industry. Research in this area can have a major impact on improving artificial hearts and valves and at the same time reducing health costs. This planning study is determining the potential to develop a research program that will support an Industry/University Cooperative Research Center for Cardiovascular Engineering. The planned Center is to have two research sites, one at the University of Miami and the other at the University of Memphis. The Co-Principal Investigators and their colleagues are recognized experts in their fields and are well qualified to run a planning meeting for a Center. This project has been coordinated with Dr. Gilbert Devey, Program Director, Biomedical Engineering & Research to Aid Persons with Disabilities, Division of Bioengineering and Environmental Systems. The Program Manager recommends the University of Miami be awarded $15,000 for three months for this planning meeting.